CAREER: Understanding the Structural Basis for Ligand Recognition by RNA Aptamers

Wilson
MCB 9876350

1. Technical: This study explores the folded structures of RNAs and their
interactions with other molecules. Aptamers isolated from random sequence
pools, including RNAs that specifically bind the enzymatic cofactors
cyanocobalamin and biotin and the chromophore malachite green, will serve
as model systems. Focus is placed on biochemical characterization of these
molecules and on the preparation of crystals and solution samples that will
enable their analysis by x-ray diffraction and NMR spectroscopy. The
structures of cyanocobalamin and biotin aptamer crystals will be determined
by X-ray crystallography and the isotopically-labeled malachite green
aptamer RNA by solution NMR spectroscopy. This is to understand the
specific atomic interactions that stabilize RNA folding, the variety of
structural folds available to RNA, the involvement of metals and waters in
RNA function, and the nature of conformational changes in RNA that result
from its interaction with other molecules. The educational component of
this project aims to use structural biology for introducing students to the
physical sciences through a combination of both classroom and laboratory
instruction. New and modified curricula in eukaryotic molecular biology
and structural biology, supplemented by the development of computer-based
educational materials, will be developed to establish the relationship
between macromolecular structure and function. Selected number of
students will be encouraged to engage in the research.

2. Non-technical: The capacity for ribonucleic acids (RNAs) to fold into
specific conformations and thereby obtain functional properties (e.g. the
ability to bind molecules or to catalyze reactions) has been increasingly
appreciated, in part through experiments in which RNAs have been evolved de
novo from pools of random sequence molecules. This recognition has fueled
speculation about the involvement of RNAs in many biological processes
(e.g. ribosome-directed protein synthesis) and supported theories favoring
an RNA-based biology as a precursor to modern life. Our understanding of
the structural basis for RNA function, critical for addressing these
issues, remains poor in part because few RNA structures have been
determined at atomic resolution. In vitro-evolved ligand-binding RNAs will
serve as model systems for understanding RNA structure and its relationship
to RNA function. X-ray crystallography and NMR spectroscopy will be used
in this study to determine high resolution models for three different
RNA-ligand complexes. Analysis of these structures will reveal the
mechanisms by which specific RNA sequences adopt unique structures and how
these structures enable specific interactions with other molecules.
Integrating these studies with teaching, this study provides undergraduate
students with basic skills in structural biology. Enhancements to existing
eukaryotic molecular biology curricula will emphasize the concept that
biological processes are driven by molecular interactions specified by the
folded conformations of macromolecules. A new course in structural biology
will expand upon this theme with the additional goal of providing
interdisciplinary training in applied physical and computational sciences.